Japan STA Program: Effect of Stress on Osteoblast/ Hempatocyte Cell Regeneration

9600233 Espinosa This award supports a 12 month Science and Technology Agency of Japan (STA) Postdoctoral Fellowship for Dr. Frank Espinosa at the National Industrial Research Center of Nagoya, Nagoya, Japan. Dr. Espinosa will work with Dr. Takahiro Suzuki, Senior Researcher at the Center, on a research project entitled, "The Effect of Stress on Osteoplast/Hepatocyte Cell Regeneration." The proposed research will elucidate how mechanical stress from fluid flow influences bone regeneration related to cases of chronic rheumatoid arthritis and osteoarthritis. Biocompatible materials are currently used in an array of implant devices; in particular, bioceramics are used in joint replacement in patients with the aforementioned problems. Recent technology has provided better control over mechanical strength and solubility of these materials in the body, the latter advancement promoting the regeneration of natural bone and permitting bioceramic devices to be implanted permanently. This in turn allows patients to forego secondary surgery (required with other medical materials) for removing implanted material once healing of the skeletal structure has occurred.. One of the main goals of the research is to better understand the natural bone regeneration process, leading to better implementation of implanted materials and potentially reducing imflammation of surrounding tissues. An apparatus and data acquisition system to measure stress and to monitor bone cell growth will be built and used in this study. This analysis will provide substantial insight as to how bone regenerates as well as suggestions for the development of artificial transplant materials for other body organs. ***